POWRE: Phylogenetic study of Andropogoneae (Poaceae)

ABSTRACT

PI:Skendzic, Elizabeth

INSTITUTION: Univ of Wisconsin - Parkside

PROPOSAL: DEB 0074777

The P.I. proposes a project to study the phylogeny of the grass tribe, Andropogoneae. Which includes 85 genera. Past work supports monophyly of the tribe based on spike morphology, leaf blade anatomy, and to some extent molecular data. Recent molecular studies, however, seem discrepant: recent work suggests the tribe is polyphyletic. She would like to investigate this hypothesis by reconsidering the taxa analyzes, the type of molecular marker used, and the addition of novel developmental and morphological characteristics. She will study species of the core genera Andropogoneae and use data from nuclear ribsomal DNA sequences, floral development and seedling morphology in order to obtain a more robust phylogeny.